New Detector Screen Media for Autoradiography

This is a SBIR phase one project to test feasibility of using stimulable phosphors as detector screens in autoradiography of tritium and 14C. The project represents a unique application of a commonplace product. If successful, the product will be useful in screening autoradiograms of biological materials.